Solar Flare Gamma-Ray and Neutron Studies

Comparisons of wide ranging observations of gamma-ray line and neutron emission with detailed theoretical calculations of their expected production by accelerated ion interactions in the solar atmosphere has greatly advanced our understanding of solar flare acceleration, propagation and interaction. These comparisons produced the total number, energy spectrum and angular distribution of accelerated ions interacting in the solar atmosphere, their probability of escape, elemental abundances, etc. These calculations have been performed by developing a complex computer code of Monte Carlo programs. These calculations will now be expanded to include stochastic acceleration, which will permit study of the time dependent nature of ion acceleration and propagation in solar flares and the role of MHD turbulence in such processes.*** //